Holographic Non-Destructive Testing Laboratory

This project establishes a holographic non-destructive testing laboratory. Students measure the stress, strain, deformation and vibrational characteristics of objects using laser technology. The laboratory enrichs the laser electro-optics program, and students' experience, which better prepares them to continue their studies at the university level and/or to pursue their technical careers in the private or government sectors.